Engineering Research Equipment Grant: Ultrasonic Doppler Velocimeter

An ultrasonic Doppler velocimeter will be purchased and modified to measure velocity distributions in various slurry and sediment flows. A proof of concept prototype of this device has been constructed and shown to work at a solids volume fraction of 50% and a penetration of 100mm in glass beads, water mixture. The funds will be used to construct a working system for the particular slurry being studied, in terms of the choice of wave length and operating mode. The measurements performed with the ultrasonic device will be compared to the results obtained with another non-intrusive method, namely magnetic resonance imaging. The proposed ultrasonic velocimeter will provide a non- intrusive tool to measure in real time the velocity distribution of solid phase in highly concentrated solid- liquid flows.